Modeling of Biological Systems

Silver
9816623
The investigator and his colleagues conduct an experimental
interdisciplinary training course at Marine Biological
Laboratory, Woods Hole, on modeling of biological systems. The
course lasts for six weeks and aims to rapidly introduce
students, postdocs, and more senior investigators to a range of
biology, mathematics, and computation. The goal is to bring them
quickly to the point where they can begin effective
collaborations with investigators of complementary expertise on
biology problems of mutual interest. Innovative aspects of the
project include its immersion in the subjects, thematic
organization, modularity of content, interdisciplinary teaming
during the course, and planned multi-year involvement of
participants, including students.
The richness of biology and the deeper understanding offered
by mathematical analyses and modeling require concerted nurturing
to foster the continuation and growth of collaborations at this
interface. The investigator and his colleagues organize an
intense interdisciplinary course on modeling of biological
systems, aimed to provide the necessary common background for
students and researchers in biology, mathematical sciences, and
engineering. The goals of the course include: (a) training
biologists in the use of fundamental and sophisticated modeling
oaradigms and tools, (b) training mathematical scientists in a
biological arena, including laboratory experience, (c) bringing
computational and experimental biologists together in considering
certain specific research areas, (d) establishing a common
framework for addressing quantitative analysis and understanding
of biological systems, (e) serving as an interdisciplinary
training and resource venue for addressing questions of modeling
of biological systems. In addressing these goals, the course
fosters the development of the shared language and skills
necessary for scientists, mathematicians, and engineers to
collaborate in solving key problems.